RUI: Support for CSNET Service at Southeastern Massachusetts University

As part of the Foundation's initiative to strengthen research environments in primarily undergraduate institutions, the Division of Networking and Communications Science and Infrastructure considers proposals to defray CSNET dues and operating expenses under the research instrumentation category of the Research in Undergraduate Institutions (RUI) Program. Southeastern Massachusetts University has met both RUI and CSNET membership requirements and demonstrates a genuine need for network access. The CSNET connection will provide the University quick access to the National Science Foundation's MOSIS integrated circuit fabrication service and also provide University researchers access to timely research information.